Molecular Studies of Homologous Recombination in Xenopus

When DNA molecules of appropriate structures are injected into the nuclei of Xenopus laevis oocytes, they are recombined very efficiently. This process is completely dependent on sequence homology between the recombining DNAs and on those DNAs being linear. Characterization of this process will be continued with the goals of achieving a complete description of its molecular mechanism and of the activities that catalyze each step in the pathway. The proposed approach has several facets: construction of substrates that test predictions of possible recombination mechanisms; isolation and characterization of recombination intermediates; and injection of putative intermediates to prove that they are on the pathway to recombination products. Considerable effort will be directed at improving and exploiting a recently developed cell-free oocyte nuclear extract that catalyzes complete recombination events. Requirements for recombination in the extract will be examined as a means of determining the underlying biochemical processes. Components of the extract will be fractionated in an effort to purify enzymes that catalyze individual steps in recombination.